Strategies for Overcoming Misconceptions in Science

There is now a significant body of literature documenting misconceptions harbored by science students which are quite widespread and which are surprisingly resistant to change during instruction. For many students, such misconceptions are critical barriers which prevent the attainment of conceptual understanding. This project will investigate some promising strategies for overcoming misconceptions in high school physics courses. The project will: (1) conduct research on students' misconceptions and potentially useful physical intuitions; (2) develop innovative lessons for dealing with several specific misconceptions in mechanics; (3) evaluate their effectiveness in high school classrooms; (4) conduct tutoring experiments in order to study student learning processes in detail and to compare alternative teaching methods; (5) formulate general principles of instruction for dealing with misconceptions in physics with possible applications to other areas of science and mathematics. Research that leads to such principles for instruction is seen as essential for guiding the national development of effective new course materials and software for students and teachers. The project will be carried out by a team of high school teachers and researchers who have worked together to produce innovative lessons and research studies. Thus, the project will be working directly at the interface between the science education research community and the classroom.